Physics Research Experiences for Undergraduates

The College of William and Mary will provide research opportunities for ten undergraduates in research groups in atomic and molecular physics, condensed matter physics, elementary particle physics, nuclear physics, and plasma physics. There will also be opportunities for collaboration with the School of Marine Science and the NASA-Langley Research Center. There will be a special emphasis on involving neighboring institutions. This project is supported under the Program of Research Experiences for Undergraduates to help ensure an adequate supply of scientists for the future.